Superoxidative Degradation of Chlorinated Organic Pollutants

This is an award to support for Phase II of a project initiated under NSF Grant No. 88-60957 under conditions outlined in the Program Solicitation for Small Business Innovation Research, NSF 88-8. The work under Phase I resulted in demonstration of the feasibility of using electrochemically generated superoxide for rapid and complete degradation of chlorinated organic pollutants of water using specially designed electrodes that allowed for the efficient dechlorination of the pollutant substrates. In Phase II, the investigators plan a systematic examination of the reaction products and their rate of formation and destruction as the basis for determining the efficiency of the process and its economic feasibility. The contamination of ground and surface waters by organic compounds that are the target of this research is a matter of great National concern. It is imperative that technologies be developed that are more efficiently responsive to removal of organic pollutants from water and wastewater. Results of this project are expected to be useful in this respect.